I-Corps: A Lead Candidate for the Treatment of L-DOPA Induced Dyskinesia and Drug Addiction and Overdose

The broader impact/commercial potential of this I-Corps project is to help a number of conditions, such as neurological disorders in the elderly and opioid addiction, by providing a potential drug candidate with new chemical properties.

This I-Corps project is based on a discovery of a drug candidate for the treatment of L-DOPA Induced Dyskinesia (LID), and Drug Addiction and Overdose (DAO). A new series of ligands with agonist/antagonist activities on opioid receptors and alpha adrenoceptor showed promising in vitro test results (binding affinity, microsomal metabolic stability assay, cytochrome P450 inhibition, hERG channel inhibition & induction, MDR1-MDCK permeability, AMES test, hepatocyte stability, caco-2 permeability, and plasma protein/brain tissue binding RED) and proved to be a potential drug candidate for the treatment of disorders, LID and DAO, where the opioid receptors and alpha adrenoceptor play biological roles. Animal tests studying the effect of HCV-3 on animal models of LID yielded promising results. It is believed that this technology is a solution for the treatment of LID and DAO.